Graph-theoretic Approximation Algorithms

Abstract for GRAPH-THEORETIC APPROXIMATION ALGORITHMS (NSF #0105548)
PI: Ramamoorthi Ravi, Carnegie Mellon University.

The increasing size of communication and information networks has motivated
several new problems in the design of networks with low cost and high
resilience; Many of these problems are known to be prohibitively expensive
in terms of computing power to solve to full accuracy. Yet these problem
abstractions capture models from a variety of application areas such as
communication network routing, multicasting messages in large
networks, VLSI layout, and transportation networks with economies of scale.
The research in this proposal aims to advance our fundamental knowledge of
the structure of good solutions to such inherently intractable computational
problems involving networks. The investigators will develop approximation
algorithms for these problems -- these are heuristic methods that trade off
some accuracy in the solution in return for lowered computational resources,
in a quantifiable way. The research will involve the application of and new
discovery of results in the theory of graphs to guide the design of these
heuristic solutions.

In particular, the investigators will design polynomial-time approximation
algorithms with improved performance ratios for many basic graph-theoretic
problems including the problem of augmenting a tree to make it
two-connected, buy-at-bulk network design problems and the minimum $k$-cut
problem. The investigators will continue their ongoing study of bicriteria
network design problems (problems that involve two objective functions to be
optimized simultaneously) to design improved bicriteria approximation
algorithms for many spanning tree problems arising in practice; These
problems involve a combination of commonly studied objectives such as the
maximum node degree, diameter and total cost of the tree. The research
effort will focus on the theme of studying natural mathematical programming
formulations for these NP-hard problems and attempt to derive improved
approximation guarantees via rounding algorithms that will also establish
the integrality gap of these basic formulations.